Scalable Particle Flow for Active SLAM with Marine Robots

Robots that work in the ocean can map the seafloor, inspect ports and cables, study habitats, and help people work more safely at sea. Yet an underwater robot often has a hard time knowing where it is. The Global Positioning System (GPS) does not work below the surface. Sonar data can be noisy, sparse, and hard to read. Radio links can fail when robots are far apart or near the water. Many current mapping methods need a good first guess and simple error models. When those needs are not met, the robot can make a wrong map or lose track of its own path. This project will develop new tools that let robots keep track of many possible paths and maps at once. By keeping these options open, a robot can make better choices about where to move and what to sense next. The results could make marine robots more useful with low-cost sensors and limited communication. Better robot maps can support ocean science, inspection of critical infrastructure, environmental monitoring, and safer maritime work. The researchers will also share software and best practices. The project will train students in robotics, statistics, signal processing, control, and ocean engineering. Work with the UC San Diego RoboSub team will give students hands-on experience with autonomy at sea.

The research will create scalable particle flow (SPF) methods for simultaneous localization and mapping (SLAM), the task in which a robot estimates its own motion while it builds a map. SPF joins particle flow with probabilistic graphical models. Particle flow moves samples of a belief distribution as new sensor data arrive. The graph model shows which robot poses, landmarks, and measurements are directly linked. This structure transforms the high-dimensional SLAM problem into many smaller-dimensional operations that can be solved efficiently. The project will develop new particle-flow tools with reduced numerical stiffness and lower computation cost. It will extend particle flow to mathematical spaces called matrix Lie groups, including the Special Euclidean group used to describe three-dimensional robot position and orientation. It will also use particle flow to estimate unknown probability distributions online. Poisson point process models, propagated with SPF, will help balance two goals: improving estimates of known features and establishing new features in unexplored areas. These advances will be used in graph-based Bayesian SLAM to represent multi-modal uncertainty. The project will also design active-sensing algorithms that use SPF to predict the value of future measurements. Actor-critic learning will produce sensing policies for choosing informative motions and measurements. The methods will be tested in simulation, on real data, and at sea with surface vehicles and underwater vehicles carrying side-scan sonar. Aerial vehicles will serve as communication relays during at-sea tests. Tests will compare map accuracy, localization error, uncertainty reduction, communication load, and computation time with standard SLAM and active-sensing baselines.